Japan STA Program: "Immunofluorescence Study of Spindle Apparatus Microtubules in Parthenogenetically and Gynogenetically Developing Bivalves"

Japan STA Program: "Immunofluorescence Study of Spindle Apparatus Microtubules in Parthenogenetically and Gynogeneti- cally Developing Bivalves" This award will provide supplementary support to enable Dr. John Scarpa of the Rutgers University Shellfish Research Laboratory to conduct collaborative research with Dr. Katsuhiko T. Wada for 18 months at the National Research Institute of Aquaculture in Mie, Japan. They will study the parthenogenetic and gynogenetic methods of developing a pure breeding line for a bivalve mollusc, either the oyster Crassostrea gigas or clam Mactra chinensis. Parthenogenesis and gynogenesis have been suggested as the two most efficient methods for quickly developing pure- breeding lines of bivalve molluscs for aquacultural purposes. These methods have been successful with fish, sea star, sea urchin, and sea cucumber, but have not produced viable bivalve molluscs. A comparative description of spindle apparatus formation during anaphase I of normally and parthenogenetically or gynogenetically developing bivalves will direct future production of pure-breeding lines of molluscs for aquaculture. Dr. Scarpa's techniques in inducing parthenogenetic and gynogenetic development will complement Dr. Wada's expertise in molluscan genetics, specifically, the Japanese pearl oyster.